Fast Forward: Science, Technology and the Communications Revolution

9901976
GUNN

National Video Resources, in cooperation with the American Library Association and the Society for the History of Technology, is developing and implementing a national project that will engage an out-of-school adult public in libraries around the country in a thoughtful discussion on the impact of science and technology in the 20th century. Using documentary television and film as the basis for discussions lead by local science educators and/or historians of science and technology, participants will examine the rapid introduction of new communications technologies in the 20th century and how major technological innovations have impact on our work and home lives. Topics to be covered include the automobile, radio, film, television, the computer, and the Internet. Fifty libraries across the country will participate in the pilot phase.